Engineering Creativity Award: Job-Related Performance Studies

Within the field of ergonomics this research project is concerned with job related physical performance tests (JRPPT). The overall objective is to review the existing JRPPT in use, evaluate their acceptability using established criteria, and develop a set of improved JRPPT for important applications. The research includes the identification of a representative sample of current JRPPT used in the workplace, observe and examine current JRPPT, data collection based upon a six point criteria, analyzing the data using task analysis, medical and physical evaluation. Such testing is urgently needed because of the increasing number of older workers who must have jobs suited to their capabilities and physical limitations, equal employment opportunities must be made available to women and minorities for jobs formerly filled primarily by males, and rehabilitation of workers who have experienced medical and health problems such as cardiac impairment.